A Knowledge-Based Multi-Media Distributed Database System For Radiology

This research deals with the use of domain and application knowledge to merge and manage scientific multi-media data from multiple sources. The primary goal of this research is to develop methodologies to integrate knowledge with bio-medical image databases and to provide approximate, summary and conceptual query answering via generalization, specialization, and association operations. Further, logical indexing techniques for retrieving images by semantic contents and the requirements of the query language constructs for supporting such cooperativequery answering will be developed. Such features are important in aiding scientists to extract new scientific knowledge from the raw data. These concepts will be validated in a testbed linked with the bio-medical image databases. The joint research between the investigators from the Computer Science Department and Medical School will assure the prototype system and experiments used are of direct interest to biological and medicalapplications. The new methodology enables access to the vast storehouse of images by content and features rather than by artificial keys, such as a person's ID. Such capabilities enhance the image databases by characterizing the objects functions or dysfunctions and behavior which will lead to improved image analysis and diagnosis techniques. The outcomes of this research should be extensible to other image and multi- media database applications and result in an experimental knowledge-based image database system that will be made available to the research community.